Global Analysis for Pseudo-holomorphic and Harmonic Maps

Abstract

Award: DMS-1011793
Principal Investigator: Thomas H. Parker

This project involves analytic aspects of the theory of pseudo-
holomorphic and harmonic maps. The PI's recent work with Junho
Lee has established a remarkable link between Gromov-Witten
theory in dimensions 2 and 4. The first project aims to complete
this program (with Lee) by explicitly calculating the local GW
invariants that determine the GW invariants of a wide class of
Kahler surfaces. The planned technique, a homotopy of operators
together with the symplectic sum formula, should be useful in
other contexts. GW is especially effective in making predictions
about Calabi-Yau 3-folds. The second proposed project seeks to
use geometric analysis methods to prove the Gompakumar-Vafa
Conjecture, which is a fascinating prediction by physicists that
the plethora of GW numbers are determined by a more limited
collection of "BPS numbers". In a third project, the PI and
J. Lee aim to prove that, under certain hypotheses, the space of
stable $J$-holomorphic maps is generically a smooth manifold, a
long-sought result. Finally, Project 4 is a study of the
finite-time singularities of the harmonic map heat flow. The
idea is to use analysis on path space to show that the maps
develop "necks" whose images converge to geodesics in a precise
manner.

One of the most notable developments in recent mathematics has
been the remarkable confluence of ideas coming from string
theory, algebraic geometry, and symplectic geometry. A major
part of the story revolves around the idea of counting
holomorphic curves in algebraic manifolds (this is a geometric
formulation of one of the most fundamental programs in
mathematics: classifying the solutions of systems of polynomial
equations). The counting problem was studied for 100 years with
few results. Then, around 1990, it was realized that the problem
can be translated into symplectic geometry and tackled using the
machinery of mathematical Gauge Theory, a theory that arose from
interactions between mathematics and physics. This
"Gromov-Witten invariant" approach quickly led to formulas
answering some of the original curve-counting problems. This
project is aimed at further developing Gromov-Witten theory using
the methods of geometric analysis, and applying similar
techniques to related problems in the theory of harmonic maps.